CAREER: Bridging Defect Models and Micro-Deformation Experiments

Career: Bridging Defect Models and Micro-Deformation Experiments

Abstract

The synthesis of new materials and structures at micro and nano scales provides the basis for a wide variety of technological innovations with a profound impact on our way of living. Reliable functioning of new devices based on these materials critically depends on the mechanical stability of the structures under processing and working conditions. The objective of this project is to develop theoretical models and simulation tools that reliably predict the inelastic deformation properties of crystals based on the dynamics of defects. These theoretical models will be tightly coupled with new experimental tools that have been developed to characterize mechanical properties at micro and nano scales. The simulation tools developed in this project will be used to create interactive modules that will strengthen high school and undergraduate curriculum. The modules will demonstrate the atomistic origin of materials properties and integrate existing curriculum on physics, chemistry, mathematics and computer science.